Travel Support for ACM SIGCOMM '94 Conference

9404572 Akyildiz The ACM SIGCOMM '94 Conference on Architectures, Protocols, and Applications will be held in London England, August 30 through September 2, 1994. This is a premier technical meeting that examines the state of the art in computer networks and protocols. Papers will be presented in such areas as analysis and design of computer network architectures and algorithms, innovative results in local area networks, mixed media networks, high-speed networks, routing and addressing, support for mobile hosts, resource sharing in distributed systems, network management, distributed operating systems and databases, and protocol specification, verification, and analysis. The travel grant will provide travel assistance for graduate students to attend the Conference. ***